Design of Large Scale Facilities with Open Finite Queueing Networks

Modelling complex large facilities such as manufacturing and assembly plants, hospitals, airports, and other building types is a difficult task because of the great volume and complexity of mixing traffic streams, the contention for finite resources, and the corresponding difficulty of analytically solving this model representation. A new technique, called the Generalized Expansion method, which models open finite queuing networks with general service times, finite waiting room, and multiple classes (chains) of customer types will be developed for the design and modelling of large complex facilities. Analytic state dependent flow models for capturing customer and occupant movement within the circulation system of building as a function of congestion in the circulation system has been recently developed. The main goal of this research is to integrate these state dependent flow models with the Generalized Expansion methodology in order to model large scale facility planning and design problems. Techniques such as the Generalized Expansion method are very effective and powerful tools for analytically modelling large scale facilities as queuing networks because of the complexity of the network, the large number of servers within the network, and the resultant mixing and superposition of traffic streams.